Experimental and Numerical Study of Room Air and Air Contaminant Distribution

A mathematical model will be developed to simulate air flow through rooms and thereby enable a better design for air conditioning buildings.